SBIR Phase II: Affordable point-of-use water disinfection through mass-produced nano-silver embedded paper filters

The broader impacts of this Small Business Innovation Research (SBIR) Phase II project focuses on the research and development of an antimicrobial nanoparticle filter paper for low-cost point-of-use water purification. The proposed project will develop an antimicrobial paper water purifier, packaged like a coffee filter, to be distributed through retail channels. This project will offer safe water to many communities throughout the world.

This SBIR Phase II project will advance the development of a process using large-scale paper machinery and similar reel-to-reel processes to manufacture low-cost nano-metal functionalized materials, such as nanosilver filter paper. Phase II objectives include: (i) optimize the process to reduce materials and other costs, increase flow rate, and maintain high-quality performance, (ii) demonstrate a more robust filter system by mitigation of water chemical and microbiology variability through improved formulation and formal determination of product shelf-life, (iii) demonstrate production at pilot and industrial speeds and output levels, while validating a non-destructive quality control program, and (iv) integrate third-party product safety certification tests.